Collaborative Research: FEC: Converging AI, Biomechanics, and Genomics to Engineer Lodging Resilient Field Crops

Cereal crops such as corn, wheat, and sorghum supply most of the calories that people eat worldwide. Yet each year, many of these plants break and topple before harvest. This failure destroys 5 to 25 percent of the potential harvest, wasting food and costing farmers billions of dollars. This project will combine engineering, plant biology, genetics, and artificial intelligence to study why stalks fail and give breeders practical tools for developing sturdier varieties. It will also move new sensing technologies into harvest equipment and toward commercial use, enabling the partner states to become a hub for predictive crop design. The University of Idaho will lead the work, partnering with Clemson University in South Carolina and the University of Nebraska Medical Center. The project will train students at community colleges and other less research-intensive institutions. Ultimately, stronger crops will improve the nation's food supply and strengthen rural economies, while the project's training component will expand the science workforce.

This project will address the genome-to-phenome bottleneck that limits breeding of lodging-resistant cereal crops. The bottleneck arises because millions of genetic markers vastly outnumber the plants that can be measured. The project will shift breeding from correlative association toward predictive, mechanism-based crop design grounded in engineering physics and biology. Answering the solicitation's call to build capacity for use-inspired research, the team will advance harvest-integrated sensing toward field deployment and translate results into a breeder-ready toolkit. It will automate high-throughput phenotyping, resolve the cellular and subcellular drivers of stalk strength, and develop multi-modal genomic foundation models that distill genomic, imaging, and metabolomic data into validated alleles. The award will support five early-career faculty, shared instrumentation, and a cross-jurisdictional data hub. It will build durable research capacity across Idaho, South Carolina, and Nebraska through matrix mentoring and institutional partnerships.